Model Reduction and Stochastic Realizations

This research concerns modeling of stochastic systems. For these systems, the work will be directed towards the development of an infinite-dimensional realization theory, the solution of problems in model order reduction, and the development of a bilinear system theory. Current work on linear stochastic infinite-dimensional realization theory requires certain restrictive assumptions to find the minimal state space realization of any given stationary Gaussian random process. Thus, the first objective is to relax these assumptions to obtain a theory applicable to a wider range of processes. The work on model reduction concerns the finding of a relatively low order model of a high order system. This has important implications for on-line control where the control action must be calculated in real time. The work on bilinear systems, a relatively simple form of nonlinear stochastic model, will attempt to extend the work on linear systems to this class of models. The approach to be used in this research is based on certain aspects of functional analysis and the geometry of random processes.